I-Corps: Translation potential of a direct-to-chip (D2C) cold plate for electronic cooling and data centers

This I-Corps project is based on the development of a direct-to-chip cold plate for electronic cooling in data centers. Currently, hyperscale data centers and high-performance computing systems use traditional air and liquid cooling methods that are increasingly inadequate for handling the heat generated by advanced Artificial Intelligence (AI) and High-Performance Computing (HPC) chips. The cold plate technology is designed to enable higher computational power density while minimizing energy consumption. In addition, this approach is designed to improve two-phase cooling solutions, which are emerging as the preferred approach for next-generation data centers, offering energy savings, reduced operational costs, and improved reliability. The technology provides a practical upgrade path for operators, allowing enhanced performance without requiring a complete overhaul of existing infrastructure, and aims to deliver significant value in the coming decade.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of a biomimetic designed cold plate for thermal management. The technology is designed to reduce the heat generated by advanced Artificial Intelligence (AI) and High-Performance Computing (HPC) chips utilizing two-phase heat transfer technology with scalable, deployable products for data centers and related applications. Advanced microfluidic architectures and surface structures are integrated so that they provide efficient heat transfer effectiveness, reduce hotspot temperatures, and lower pumping power requirements. Lab-scale results demonstrate a heat transfer coefficient enhancement of up to five times compared to conventional solutions. The technology may accelerate the commercialization of energy-efficient cooling technologies and support the growth of AI and HPC systems while improving U.S. economic competitiveness.